RUI: Measurement of Hyperfine Interactions in Small Molecules

9302894 Cederberg This RUI proposal concerns the measurement of hyperfine structure in sequences of vibrational and rotational states in small molecules using a high-resolution molecular beam electric resonance spectrometer. These spectra will provide improved values for hyperfine interaction constants and will be used to determine the variation with internuclear distance of electric field gradients at each nuclear site. The field gradients will be compared with those obtained from theoretical calculations of electron wave functions.